Virtual Reality: Understanding Massively Parallel Computer Systems

9212976 Reed This is the third year of a three-year continuing grant. Understanding the dynamics of massively parallel computer systems is critical to advancing the state of the scientific art. Increasing numbers of scientist use high-performance computer systems as their only tool. However, it is impossible to accurately predict performance of application programs of massively parallel procesor systems and it is difficult to identify the reasons for poor performance. This work is to use a head-mounted display and virtual reality technology to develop virtual environment representations of the time varying state of a parallel computer system. Immersion view models will be developed for data representation and process control. Much of the work will focus on the development of appropriate visual and aural idioms for computer and application scientists, making immersive performance analysis readily understandable.